Linking Pollination and Herbivory: Selection from Herbivores on a Flower Color Polymorphism

Strauss
DEB - 9807083

Traits expressed by species within a community reflect an integration of
selection pressures from a variety of biotic and abiotic sources. This
project would integrate the different selective pressures imposed by both
herbivores and pollinators in evaluating the general features of plant
traits. It will focus specifically on flower color, which has
traditionally been thought to respond primarily to pollinators. This work
will investigate a California wild radish that exhibits three color morphs
and for which preliminary data indicate that antagonistic herbivores may be
exerting selective pressures on flower colors in addition to pollinator
responses. Pollination and herbivory rates will be documented in field
studies of the three-color morphs that occur in the study area. This
information will be combined with field and greenhouse experiments that
will examine herbivore preferences and plant performances relative to
color. This work will illustrate how understanding the maintenance of
genetic diversity at microevolutionary scales can be related to the
generation of Biological diversity at macroevolutionary scales.